Summer Geometry Initiative 2022

This award provides support for the 2022 Summer Geometry Initiative (SGI), a six-week summer workshop bringing a broad pool of students into geometry processing and related research disciplines. A cohort of roughly 30 SGI Fellows will complete a week of intensive training in geometry processing research practices, followed by five weeks of collaboration with top researchers in the field, guest lectures, guidance on graduate admissions, and interaction with one another; an additional group of students is invited to participate in only the initial tutorial week. Designed to broaden access to geometry processing research experiences, the program targets Fellows drawn from a diverse set of backgrounds, geographic locations, and institutions, with a focus on students otherwise unlikely to have access to this cutting-edge discipline. Fellows receive stipends to alleviate the opportunity cost of participating in the workshop.

The SGI 2022 offering aims to develop SGI as a supporter of the geometry processing community and as a model program for computational and mathematical disciplines seeking to broaden the diversity of future generations of researchers. Beyond community-building, SGI Fellows will tackle real-world research problems affecting applications like digital manufacturing, virtual reality, physical simulation, architecture, and autonomous driving using tools drawn from mathematical disciplines including differential geometry, partial differential equations, optimal transport, numerical analysis, and optimization. More information can be found on the program website, at: https://sgi.mit.edu/